Repair and Retest of the 5-Story Full-Scale Reinforced Masonry Research Building

The first U.S. 5-story full-scale research building which was tested at UCSD under simulated seismic loads to 1-1/2 to two times the seismic design and deformation levels, provides in its damaged state a unique opportunity to develop and experimentally validate new repair technologies. The proposed repair measures consist of epoxy injection, advanced composite wall and floor overlays as well as ceramic foam applications in the hollow core plank floors, with particular emphasis on materials and technologies originally developed and applied in the defense industry to show their potential for application in the civil sector. It is proposed to use loading sequences in the retest which correspond closely to the original seismic load test, in order to get a direct experimental seismic behavior comparison for the verification of the effectiveness of the proposed repair measures. The test results will provide important information about the repairability of damaged reinforced masonry structures and about the expected behavior of repaired structures under future seismic loads.